A workshop on next generation of real-time and embedded computing for cybersecurity, and networking

The proposal requests support for a workshop being held in conjunction with the 12th IEEE Real-Time and Embedded Technology and Applications Symposium (RTAS 2006), in San Jose, California, April 4-7, 2006. The workshop explores research challenges that have subtle yet critical relationships in four major research areas: real-time computing, embedded computing, cyber security and networking. Broader impacts are expected through the outreach to students, in an extremely important area for national economic competitiveness.